Finite-size Particles in Homogeneous Turbulence

ABSTRACT

Proposal Number: CTS-0210044
Principal Investigator: Prosperetti, Andrea
Affiliation: Johns Hopkins U
Title: Finite-size particle in homogeneous turbulence

An effective computational approach has been developed by the PI for direct simulation of finite size particles suspended in incompressible fluid. The proposed project investigates the feasibility of using this method for direct simulation of many finite size particles in homogeneous turbulent flow. If successful, this approach would provide a powerful tool to analyze the challenging problems associated with the impact of particulate turbulent flow.